REU Site: Aquatic Sciences, Engineering, and Technology Research Experiences for Undergraduates

This project will provide undergraduate students with hands-on research opportunities in a variety of scientific disciplines. Students from across the United States will be selected to participate in intensive research projects, working closely with faculty and researchers who offer mentorship and guidance. Students will gain valuable scientific skills, professional networks, and career exploration, strengthening the workforce of outstanding scientists and engineers.

This REU site focuses on aquatic sciences and provides a unique opportunity to explore research across the natural sciences, sustainability sciences, and resource engineering. Through independent research projects and collaboration within a cohort of researchers, the students will develop skills in research development and design, field methodologies, data analysis, science communication, career and leadership development. These experiences will prepare students for the workforce and provide them with the tools to address current and future aquatic science and engineering.